SHF: ESEC/FSE 2018 Doctoral Consortium, Mentorship, and Conference Travel Support

The grant provides travel support to students and junior faculty to attend ESEC/FSE, the result of a recent merger of two, top-tier conferences in Software Engineering -- the International Symposium on the Foundations of Software Engineering (FSE) and its European counterpart, the European Software Engineering Conference (ESEC)). The travel support is aimed at attendees of the Doctoral Symposium and first-time attendees, who will participate in a mentorship program provided by the organizers. The grant enables participants to engage in technical exchange of information and research conversations/collaborations leading to advances the field. Participation is an important education, training and mentoring experience. The international nature of this conference helps develop a globally-aware workforce of research and educators within the US and helps build the community of researchers in the field of Software Engineering.